Proposal to Create Prototype Regional Science Center for American Indians

This project, focused on American Indians in South Dakota, designing and implementing the following activities: (a) a two-day workshop for Indian educators, state and federal representatives to develop a long-term plan for American Indian science education; (b) an after-school science program for junior and senior high school students; (c) a one-day career workshop for Native American boys and girls; (d) a regional science summer camp for 9th-12th grade American Indians; (e) a mentoring activity between American Indian college students and high school students; (f) a college visiting scientist program to the Pine Ridge Indian Reservation; (g) science learning kits for use in reservation schools. Measurable Objectives to determine project effectiveness include: o Attitudes toward science (pre- and post-tests). o Interest survey of parents, teachers, students. o Data on course selection of participants compared to non-participants. o Subject-matter knowledge of participants (pre- and post-tests); comparison with non-participants. o Follow-up interviews with school system administrators.